V International Symposium on Meson-Nucleon Physics and the Structure of the Nucleon

The 5th International Symposium on Meson-Nucleon Physics and the Structure of the Nucleon will be held. Currently, there is great interest worldwide in this topic. Experts will gather to assess the experimental and theoretical status of the field and discuss future plans. Strong international participation is expected.